Postdoctoral Fellowship in History and Philosophy of Science

The relationship between form and substance has long intrigued historians and philosophers of science and technology. To what extent does a scientific theory affect and, more provocatively, is it affected by the form in which it is presented? Dr. Broman is studying the connections between form and substance in his study of biological theories and the genres in which they are presented. He will seek to learn what kinds of problems were handled in different genres, how those genres were structured, and how information moved between them. He will make a close reading of the logical and rhetorical structure of these writings with the aim of discovering the explicit and implicit "rules of scholarship" contained in different genres. Finally, he will attempt to demonstrate the extent to which these literary structures determined what sort of physiological theories could be articulated by them. The specific context in which Dr. Broman will examine these questions is a study which seeks to connect the changing physiological theories between 1750 and 1820 with the introduction of new genres of medical writing during the same period. At the level of theory, the change was from functional explanations of anatomical structures to two new areas of interest: morphological studies of the laws of animal form and theories emphasizing regulation of vital processes. At the level of writing, doctoral dissertations rapidly fell after 1800 while journals publishing reports of empirical research established themselves as a new genre in biological scholarship. His argument is that the old genre made presentations of empirical research more difficult while the new one facilitated it. This study will greatly help historians and philosophers of science to understand the constraints of form on the substance of scientific thought and how science moves to adopt new forms when necessary. Dr. Broman will undertake this research under the guidance of Dr. Frederic L. Holmes at Yale University. Dr. Holmes' experience in studying the detailed methodologies of practicing scientists will provide Dr. Broman with a much needed grounding in the "substance" whose form of communication he wishes to examine.